Testing the temporal assumption of Mayr's Geographic Speciation Model

0002213
Hrbek

The International Research Fellow Awards Program enables U.S. scientists and engineers
to conduct three to twenty-four months of research abroad. The program's awards
provide opportunities for joint research, and the use of unique or
complementary facilities, expertise and experimental conditions abroad.

This award will provide Dr. Tomas Hrbek with support for
twenty-four months to work with Dr. Axel Meyer at the University of Konstanz in
Germany on a project entitled "Testing the Temporal Assumption of Mayr's Geographic
Speciation Model."

This project will use the killifish genus Aphanius as a model system to test distributional
and speciational hypotheses as impacted by the Plio-Pleistocene Mediterranean Sea level
fluctuations, the Messinian salinity crisis, orogenic events associated with closing of the
Tethys Sea, and the drying of the central Anatolian plateau. Mayr's model of speciation
postulates that the range of a single species must be broken up into discontinuous regions,
with little or no gene flow between them, in order for speciation to occur. Dr. Hrbek will
use molecular data to generate a phylogeny of Aphanius and will do a population genetic
study of the Aphanius anatoliae species complex. A detailed molecular analyses will
allow him to test temporal and spatial processes leading to patterns of diversification and
speciation which are exemplified in that genus. Such an analysis will also aid
conservation efforts of this group of fishes, which appear to be endangered in many areas
of their distribution.

The host lab is especially well suited for this project, having a very active research group
and an extensive professional contact with the European evolutionary community. The
lab also has an extensive infrastructure and knowledge base.

***